Symposium "Moving Boundary Problems in Physics, Mathematics and Materials Science"; Pittsburg, PA; April 11-12, 2003

0225261
Vinals
This award is jointly funded by the Divisions of Materials Research and Mathematical Sciences. It supports a symposium to be held at Carnegie Mellon University on April 11-12, 2003, entitled "Moving Boundary Problems in Physics, Mathematics and Materials Science." The symposium recognizes the many contributions to this interdisciplinary field by Professor Robert Sekerka . Funds will be used primarily to assist young researchers to attend.
%%%
This award is jointly funded by the Divisions of Materials Research and Mathematical Sciences. It supports a symposium to be held at Carnegie Mellon University on April 11-12, 2003, entitled "Moving Boundary Problems in Physics, Mathematics and Materials Science." The symposium recognizes the many contributions to this interdisciplinary field by Professor Robert Sekerka . Funds will be used primarily to assist young researchers to attend.
***